U.S.-Brazil Cooperative Research: Tagging of Plant Genes Expressed During Symbiotic Interactions with Arbuscular Mycorrhizal (AM) Fungi

9729526 Lawton This U.S.-Brazil award will support research collaboration between Dr. Michael A. Lawton of Rutgers University and Drs. Marcio Lamais and Helaine Carrer of Universidade de Sao Paulo in Brazil. Most plants undergo a symbiotic interaction with arbuscular mycorrhizal (AM) fungi. This interaction is important for nutrient assimilation and for plant growth and health, yet there is scant information regarding the molecular and genetic basis for AM colonization of plants. The investigators plan to use gene tagging techniques to characterize plant genes whose expression is associated with specific stages of AM infection. The three investigators each bring a unique expertise to this project. Dr. Lambais is an expert in plant:AM interactions, Dr. Carrer is expert in plant transformation and molecular genetics, and Dr. Lawton in molecular biology of plant:pathogen interactions. The final result of this work will be a collection of tagged plants that will be of general use, made freely available to the research community. ***